Cold Spring Harbor Laboratory Computational Neuroscience: Vision Course Conference; Summer 2004, Cold Spring Harbor, NY

Funding is requested for a Cold Spring Harbor course on Computational Neuroscience: Vision from June 18 - July 1, 2004, and for the summer 2006 course. Computational approaches to neuroscience have produced important advances in our understanding of neural processing. The course emphasizes that an understanding of the computational problems in conjunction with perceptual and biological data can help guide research in neuroscience. Through a combination of lectures and hands-on computer laboratory experience, this course will cover: neural representation and coding; the neural basis of color vision, pattern vision, and visual motion perception; oculomotor function; and visual attention/decisionmaking. This course has now been taught 6 times over the past 12 years as part of an integrated set of courses at Cold Spring Harbor in a number of areas of neurobiology. This year, there will be a new emphasis on theories and computational models of the neural basis of visually-guided behavior and decision-making, a burgeoning area of sensory and computational neuroscience. Lectures in the course will be given by the organizers and by invited lecturers who are working on current research frontiers and are leaders in their field. Invited lecturers include: E. H. Adelson (MIT), D. Brainard (Penn), Matteo Carandini (Smith Kettlewell Eye Institute), E, J. Chichilniski (Salk Insitute), , Kathleen Cullen (McGill University), Bruce Cummings (National Eye Institute), James DiCarlo (MIT), D. J. Heeger (NYU), Daniel Kersten (Univ of Minnesota), J. A. Movshon (NYU), Pamela Reinagel (UCSD), F. Rieke (U. Washington), Ruth Rosenholtz (NASA), S. Treue (U. Gottingen), Preethi Verghese (Smith Kettlewell Eye Institute).